GOALI: Nanothermite Based Micro Shockwave Generators and Nanoparticles for Targeted and Efficient Gene/Drug Delivery

GOALI: NANOTHERMITE BASED MICRO SHOCKWAVE GENERATORS AND
NANOPARTICLES FOR TARGETED AND EFFICIENT DRUG DELIVERY

The objective of this research is to develop a novel digitally controlled micro shockwave
generator by integrating nanothermites with microelectromechanical systems (MEMS). The
approach is based on shockwaves from redox reactions of nanothermites. The shockwaves are
used to deliver genes and/or drugs into cells with high transfection efficiency and cell survival.
Furthermore, organosilicate nanoparticles synthesized on site will be utilized as an effective and
targeted delivery vehicle via the shockwave.
Intellectual Merit. The proposed miniaturized systems will cover the large impulse range
necessary for permeabilization of a variety of cells and tissues with different mechanical
properties and/or environments. Unlike physical gene delivery methods which rely on bulky and
expensive instrumentation or chemical delivery methods that exhibit low transfection efficiency,
the proposed MEMS-based shockwave generator -- alone or in combination with nanoparticles -
- will produce shockwave interactions and drug delivery at the single cell level, providing
unprecedented control over cell transfection processes.
Broader Impacts. The proposed research is expected to transform the study and understanding
of biological processes in health and disease, and enable novel diagnostics and interventions.
Educational objectives include recruitment of students from regional college programs, including
those with predominantly Black and Hispanic enrollment and a summer “Nano Camp” for high
school students. Undergraduate and graduate students, particularly from rural areas of Missouri
will be trained to develop leadership, ownership, mentoring, career skills and entrepreneurship to
prepare them for the 21st century work force.